Arkansas Undergraduate Research Program

93-53659 Geren Arkansas Undergraduate Research Program A pilot project is proposed to develop a state-wide program to support undergraduate research. Involvement in a hands-on research project is the capstone of a complete undergraduate education. Funds are requested from NSF, the State of Arkansas, and participating institutions to support individual research projects for 35 undergraduate students and their mentors. The program will be administered by the Arkansas Science and Information Liaison Office. Criteria for selection of participants and administration of the program are described. Students and mentors will be able to request academic and summer support for students, summer salary for mentors, and travel funds for the students to attend appropriate scientific sessions. The program is primarily aimed at junior and senior students, but all Arkansas institutions of higher education will be eligible to compete. If the pilot project is successful, funds will be solicited within Arkansas to continue and expand the program.